1992 Northwest Developmental Biology Conference April 29-May 2, 1992, San Juan Island, WA

We are requesting funds for support for the 25th Annual Meeting of the Northwest Regional Development Biology Conference to be held April 29- May 2, 1992 in the conference facilities at the Friday Harbor Laboratories of the University of Washington (San Juan Island, Washington). The funds requested here will be used exclusively (a) to pay for travel expenses, room and board for the five invited speakers, and (b) to lower the cost of room and board for the estimated 55-75 graduate students expected to attend the conference.